Ice Sheet Dynamics in Central Greenland

This award is in support of the second Greenland Ice Sheet Project (GISP II). The principal objective of GISP II is the recovery and paleoclimatological analysis of a deep ice core from central Greenland. The primary objectives of this aspect are to study the effects of ice flow on the stratigraphy along the GISP II flowline, and to determine a preliminary time scale for the deep borehole site. Detailed variations of surface topography, strain rate, surface velocity, and accumulation rate are to be measured. These results will be used to determine the locations of intense shear zones resulting from the variation of the effective viscosity with depth and the influence of the bedrock topography. The large scale surface velocity field will be determined by re-surveying sites in the GISP II site selection grid and the mass balance of the region will be computed. All these results will be used along with a finite-difference numerical flowline model to calculate the stress, strain rate and velocity fields along the flowline, and the depth-age relation at the borehole sites.